SBIR Phase I: Artificial Intelligence Tool for Analysis of Legal Documents

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be to establish an artificial intelligence (AI) system capable of providing data-driven insights for attorneys. The legal community currently lacks data analysis tools to help with civil case preparation, which can lead to suboptimal trial outcomes. The proposed technology can help lower costs through document analysis. The technology is designed to both automate and improve the decision-making process and enable attorneys to expand their case load, as well as enabling cost-effective representation.

This Small Business Innovation Research (SBIR) Phase I project will use federated learning techniques to train the technology’s algorithm across multiple decentralized databases without exchanging data samples, thus keeping information private and confidential. This approach overcomes the lack of access problem in applying AI to legal cases, without compromising data confidentiality. The proposed research will include two major objectives: 1) improve and verify the accuracy of the platform, and 2) create internal checks to ensure that the model does not propagate bias. Computational outputs will be assessed using data and records from randomly selected cases with known outcomes to demonstrate system accuracy; moreover, the model will explicitly account for potential sources of bias.